Mathematical Sciences: Transformation Techniques in Regression

This research focuses on transformations in regression analysis when there is a theoretical model for the median response, but the error distribution must be modeled empirically. The purposes of the transformation are to stabilize the variance and to induce symmetrically distributed errors. Estimating such timation of parameters in the theoretical model. It can also help model the random nature of the physical system from which the data arose. This reseach in statistical science is in the general area of regression analysis. Mathematical theory in this area deals with measuring the degree of association between variables and assessing the nature of such associations. This work extends the flexibility of the mathematical models available for making such assessments and thus will permit a richer variety of relationships to be discovered and characterized.